An Undergraduate Geographic Systems Laboratory

This project aims to meet the increasing demand for technicians trained in the use of Geographic Information Systems (GIS) technology. The major equipment purchased includes computer hardware and software to support five GIS workstations. These make possible the storing, integration and analysis of information about land aspects including ownership, what is on it, and natural resources. Associate degree programs in GIS, Civil Engineering Technology and Surveying are affected by this project. The award is being matched by an equal amount from the principal investigator's institution. //